WORKSHOP: Processing for Control of Microstructure Evolution and Performance - Modeling, Simulation and Verification; July 23-28, 2000, Plymouth, NH

This award is to support a Gordon Conference on Processing for Control of Microstucture Evolution and Performance: Modeling, Simulation and Verification, to be held July 23 - 28, 2000, in Plymouth, NH. The topic is directed towards the fundamental understanding of the relationship between various processes, including casting solidification and the subsequent microstructures that evolve during and after the processing. The focus is on predictive modeling for metal netshape processing. Participation will be encouraged from among various disciplines, including metallurgists, materials scientists, alloy and process designers and mathematics modelers. Graduate students, faculty and industrial researchers will be invited to attend. This award, co-sponsored by the Division of Design Manufacture and Industrial InnovationI and the Division of Materials Research, is for the support of participants to this conference.